Controversies in Neuroscience: Conference to be held in Portland, Oregon on August 24, 1990

This application for support for an annual series of conferences on "Controversies in Neuroscience" proposes to set up debatable issues for each conference and to publish the results in a journal which will publish both the main speakers' summary of the issues and the discussants' comments. If this formula is succesful it will be a good format for settling issues and arriving at new directions for neuroscience.